Mathematical Sciences: Conference on Inverse Problems in Differential Equations: Computational Algorithms; March 10-14, 1991, College Station, Texas

This grant is to partially support a conference and workshop to be held March 10-14, 1991 at Texas A&M University. The topic of the conference, inverse problems in partial differential equations, arises from a wide variety of problems in science and engineering. The availability of high speed computers has allowed attempts at large scale problems of enormous social and economic value, for example, the CAT scan and oil reservoir simulations. The question of non-uniqueness is a critical one for the development of numerical algorithms. Determining the necessary amount of data in order that at most one solution can exist is an important question; however, often one can redefine the "solution class" in order to "answer" this question. Even when this is not reasonable, the problem may be reformulated into a "sufficiently close" problem for which the situation is much better. The very fact that CAT scans work or that features of submarines can be detected by using reflected sound waves shows that complex inverse problems can be, if not solved, at least negotiated. The conference participants will discuss whether one can find numerically implementable methods that give a unique solution to some closely related reformulation of problems in the subareas of impedance tomography, inverse scattering and spectral methods, and overposed boundary data. The participants will test these algorithms in a workshop atmosphere. //